Mathematical Sciences: Jacobi Sums, Stark Units and Distribution Questions

There are two thrusts to this research. The first concerns the Stark conjecture which conjectures the existence of a certain unit in an abelian extension of number fields that will determine the structure of the extension. The second concerns the existence of probability distribution functions for the number of solutions modulo powers of primes of certain types of Diophantine Equations. This is an ROW research planning grant. It presents an excellent plan for an excellent young person to become involved in mainstream funded research. The area is number theory, one of the most venerable in all of mathematics. I think that this grant has an excellent chance to achieve the goals of the ROW program.